The Crab Nebula Radio Pulsar: Is it Different?

AWARD NO: AST-0607492
PI: Timothy Hankins
INSTITUTION: New Mexico Institute of Mining and Technology
TITLE: The Crab Nebula Radio Pulsar: Is it Different?
ABSTRACT
It is thought that the radio emissions from pulsar magnetospheres are ruled by plasma
electrodynamics in a rotating system where the magnetic field is strong enough for
quantum effects to matter and the induced electric field is strong enough to accelerate
charges to high Lorentz factors. Yet theoretical models of the physical conditions and
details of the emission mechanism have gone largely unchallenged because of the
difficulty testing them against traditional pulsar observations. However, because models
diverge in their predictions for short timescales, the PIs have been pursuing high time
resolution observations of the Crab Nebula pulsar. New data acquisition systems
developed for this purpose have detected nanosecond long radio bursts from the Crab's
Main Pulse region and the fundamental entities creating the coherent radio emission. The
time and frequency characteristics of these "nanoshots" are consistent with a strong
plasma turbulence model. However, subsequent observations of a second emitting region,
the Interpulse, revealed dramatically different time and frequency signatures indicating
substantially different physical conditions which are difficult to explain.
As the Crab pulsar is unusual because of its young age, a similar study of a small set
(five) of bright pulsars will be undertaken. These pulsars have been chosen to represent
the range of likely conditions in other pulsars and the observations will reveal whether
the type of emission from the Crab is typical of the general pulsar population. For the
Crab itself, intensity and polarization fluctuations on microsecond timescales, as well as
time averaged polarization signatures, will be connected to the physical conditions in the
emission region by additional theoretical modeling performed by the PIs. Theoretical
models of the Interpulse emission will also be critically studied to determine which, if
any, existing model can explain these observations.
Graduate and undergraduate students will be directly involved in all aspects of this work
- from constructing and maintaining the data collection systems to developing the
numerical codes for modeling and analysis. Beyond the laboratory, some of the research
tools used here will be made available for teaching in local classes and the scientific
results incorporated into web-based teaching materials (in addition to dissemination in
the professional literature). The state-of-the-art acquisition systems, which will be
improved as part of this work, will be made available to the radio astronomy community
on a collaborative basis. The data acquisition and control software developed by the PIs
is directly applicable to, and available for use in lightning research by the Atmospheric
Physics group at New Mexico Tech.